SGER: Platforms for Future Embedded Systems

This SGER award supports a study that will contribute to a new Cyber-Physical Systems (CPS) vision being developed in NSF's Computer and Network Systems division. The goal of CPS research is new science and engineering methodologies that integrate the interacting cyber and physical elements of future engineered systems. CPS seeks new design principles and systems technology that can routinely yield high-confidence physical and engineered systems. This study explores one aspect of CPS, research challenges in systems architectures for systems that are fundamentally both cyber and physical.